RIA: On the Theoretical and Practical Aspects of Allocation and Scheduling for Mesh Systems

Zhu This project is a study of processor allocation and task scheduling for mesh-connected multicomputers. Parallel applications submitted to a mesh system need to be gang-scheduled on dedicated processors, which may be required to form a special structure, such as a submesh. This project is investigating both theoretical and practical aspects of mesh allocation and scheduling, using a three-phase approach. The three phases are: 1. to develop strategies for generalized processor allocation to satisfy various application specifications; 2. to devise and evaluate scheduling algorithms by adopting two- and three-dimensional packing heuristics; and 3. to apply the algorithms to practical systems.